Support of UNM/SNL Ion Microprobe Facility

9506611 Layne This grant will continue funding of the UNM/SNL Ion Microprobe Facility, a joint venture of Sandia National; Laboratories and the University of New Mexico's Institute of Meteoritics, begun in July 1992. The facility has historically provided 20 hours/week of analytical time to NSF funded investigations in the earth sciences. The time allotted to NSF supported researchers will now be increased to 30 hours/week. More than 19 separate analytical packages for trace element and isotopic analysis of natural and experimental materials have been developed at this facility and since the inception of the current NSF facility support grant in July 1993, an aggressive program of preventative maintenance and instrumental improvements has resulted in greater than 93% of scheduled analytical time running successfully. Future technical development efforts will place particular emphasis on extending the facilities current strengths and PI's interests in the areas of i) stable isotope ratio analysis, ii) trace element analysis in rock forming silicates, silicate glasses and carbonates, and iii) trace element imaging techniques. ***